Solarmax Large Format Film

9814641
Eather

The Museum of Science and Industry in Chicago is producing a large format film that examines the sun and the relationship between the earth, its inhabitants, and our mother star. SOLARMAX will present some of the newest discoveries about the sun and will place special emphasis on the defining impact of the sun on human life and culture. The influence of solar cycles on global warming will be explored and new, unprecedented high-definition images of the sun will be included for the first time in a large format film. The film will examine how multiple scientific disciplines interact to build a complete picture of the universe by delving into the history and philosophy of science, astronomy, astrophysics, solar physics, helioseismology, meteorology, spectrography, mathematics, and biology.

The Museum of Science and Industry, Chicago, will serve as Executive Producer and distributor of SOLARMAX. The film will be produced by Robert Eather, an expert in magnetospheric physics and a science filmmaker. The Co-Producer, Writer, and Director will be John Weiley who previously served in these roles for the large format film, Antarctica. Advisors in the fields of space weather, solar physics, and archaeoastronomy include Louis Lanzerotte, Paul Dusenbery, Gaerhardt Haerendell, George Siscoe, and Edwin Krupp.